Variational Eigenvalues of Quasilinear Elliptic Operators and Critical Groups

Abstract

Award DMS-0305815

Kanishka S Perera, Florida Institute of Technology

Title: Variational eigenvalues of quasi-linear operators and critical groups

Boundary value problems involving variational type quasilinear
elliptic operators arise naturally in a wide range of
applications. The solutions of such problems can often be obtained
as the critical points of an associated variational functional
defined on a suitable function space. In recent years infinite
dimensional Morse theory, which is one of the most important tools
in critical point theory, has been used to study semilinear
problems with striking success, but unfortunately this is not so
in the quasilinear case. Basic Morse theory describes the local
behavior of a functional near an isolated critical point by a
sequence of groups called the critical groups, and there are
serious difficulties in determining the critical groups, both at
finite critical points and at infinity, for functionals arising
from quasilinear problems. Standard tools such as the generalized
Morse lemma and the shifting theorem can no longer be applied
since the domains of such functionals are generally not Hilbert
spaces. Moreover, a complete description of the spectrum of a
quasilinear operator is usually not available and there are no
eigenspaces to work with. The goal of this proposal is to
determine the critical groups in a broad class of variational form
quasilinear problems, both resonant and nonresonant, and apply the
results to obtain existence, multiplicity, and qualitative
properties of solutions such as the number of nodal domains.

Nonlinear partial differential equations is one of the most
applicable and highly interdisciplinary areas of mathematics. They
are widely used to model fundamental processes in science and
engineering. While tools for numerically computing solutions of
quasilinear equations have been developed extensively, there is
very little analytical theory currently available. Our goal is to
establish parts of the needed theory and to investigate the
structure of solutions. The knowledge gained by this project will
have applications to a wide variety of physical systems.